Degenerate Microlocal Methods and Geometric Analysis

NSF Proposal DMS - 0204730: Rafe Mazzeo

The proposed work in this project involves the continuing
development of analytic tools to study a variety of problems
in geometric analysis. These include the global theory of
the moduli space of constant mean curvature surfaces in Euclidean
space, the application of new gluing techniques to construct
new types of Einstein metrics, a more detailed study of the
analytic and geometric behaviour of conformally compact Einstein
metrics and the deformation theory of such metrics, with special
attention to self-dual conformally compact Einstein metrics in
four dimensions. The proposed techniques here include further
extensions of Cauchy data matching, as developed by the PI and
Pacard, as well as refinements of the PI's `edge calculus'.Abstract for
Other parts of the proposal involve use of the pseudodifferential
calculus of fibred boundary operators, as developed by the PI and
Melrose, to the study of gravitational instantons, particularly
their L2 cohomology. Finally, the PI and Vasy propose to
investigate the connections between geometric scattering theory
on symmetric spaces of rank greater than one, as well as a
class of spaces asymptotically modelled on these, and the
microlocal theory of quantum N-body scattering. For the human
resources component, the PI proposes to continue his directorship
of the Stanford University Math Camp, a residential summer
program for talented high school students, and also to continue
his other outreach efforts to disseminate mathematics appreciation
to the general public.

From a more general point of view, the PI's research concerns
problems arising in geometry and analysis involving what are
known as curvature equations (the theory of Einstein metrics in
general relativity being the best-known case) as well as scattering
theory on spaces which possess high degrees of symmetry `at infinity'.
A central concern throughout is the application of somewhat novel
techniques from harmonic and microlocal analysis to these problems. The
theme is that one should develop analytic techniques which are
specifically adapted to each geometric problem, and these geometric
settings in turn should suggest new developments in the analytic
technology. This approach has proved very successful in the PI's
previous research. The problems considered here are inspired by main
trends in various aspects of mathematical physics, most specifically
the two somewhat separate fields of quantum scattering and some parts
of string theory. Some of the current and proposed work has already
stimulated interest on the part of some communities of physicists,
and their intuitions provide an interesting guide for further mathematical
directions in this work. Beyond these motivations, the PI regards this
particular interplay between geometry and analysis as an important one,
particularly because the types of geometric objects studied here are
becoming increasingly important in many other places in mathematics.
The PI has also undertaken extensive human resources development,
including the above-mentioned summer program, and is active in
mentoring a number of young researchers.